RESEARCH INITIATION AWARD:Efficient Control of ManufacturingSystems with Buffer Costs

9410242 Perkins The primary objective of this research is the development of an efficient control for semiconductor manufacturing systems. To achieve this objective, two subproblems will be solved. The overall aggregate control will then be an intuitive blend of these results. The first subproblem is to determine an optimal control for a re-entrant manufacturing system with buffer costs. The method of solution is to exploit structural properties, such as piecewise continuity and monotonicity, of an optimal control in order to reduce the problem to one with a known solution. The second subproblem is to determine the effect of the control on several unreliable machines. It will be show that, for a certain class of controls, the buffer level probability densities satisfy a set of linear, hyperbolic partial differential equations. The solution of these equations will be explored using numerical, and simulation methods. The aggregate control will partition the system buffers using three criteria: machine reliability, buffer utilization, and distribution of the down and up times of machines. The results of the subproblems will then be used to determine the appropriate controls. In addition, regulators will be implemented to smooth out the material flow, thus reducing second-order effects. Simulation will be used to test the efficiency of the aggregate control. ***